Support of the International Activities of the User ServicesArea Director of the IETF

9318903 Schorr This award covers international travel for one year for the User Services Area Director of the Internet Engineering Task Force (IETF). The User Services Area provides an international forum for people interested in all levels of user services, to identify and initiate projects designedto improve the quality of informatin available to users of the Internet. The Area Director plans trips to Europe to attend RARE/RIPE meetings and JENC '94. ***